UBM: Interdisciplinary Training for Undergraduates in Biological and Mathematical Sciences at ASU

An interdisciplinary team of investigators carry out an
undergraduate training initiative at Arizona State University.
The training plan intimately combines new cross-disciplinary
courses and summer research programs. The former are constructed
to allow maximal participation among undergraduate cadres, and
facilitate life science majors to achieve a minor in mathematics,
and, likewise, mathematics majors to enrich their education with
a minor in bioscience. The summer research program is a
competitive enterprise involving at least eight ASU faculty
members from life sciences, mathematics, and biophysics.
Research projects span modeling of ecological and evolutionary
processes through the new lens of stoichiometric constraints,
bio-economics, chemostat theory, and modeling of visual
perception.

This project has potential to make broad impact in both
local and global education environs. Regarding the former, the
ASU UBM team is truly interdisciplinary, with members in
mathematics, biology and biophysics, exceptionally well suited
for interdisciplinary training for undergraduates in biological
and mathematical sciences. Its collaborative efforts can provide
undergraduate and graduate students of diverse ethnic/racial
backgrounds with first-hand educational experience in
cross-disciplinary communication and exploration. As for global
impact, the proposed holistic approach (involving mathematical
biology courses at various levels and summer research projects)
in mathematical biology training can vertically integrate all the
components in the ASU education system. It is therefore expected
that this proposed program may yield many invaluable lessons to
serve mathematical bioscience education and research nationwide,
enriching the experience for the next generation of students in
this integrative and interdisciplinary scientific endeavor.